Precollege-University Partnerships

This conference, sponsored by ORAU and the Department of Energy, is being held to inform participants how to create college and school partnerships, which are defined as including college science faculty, college education faculty and K-12 teachers. Between 200 and 250 persons will attend the conference. The conference will present ideas, techniques and strategies for the development of these partnerships. In addition possible models for partnerships as well as actual existing partnerships will be described. The outcomes of the conference will be the proceedings, the actual development of partnerships and the development of a network of support using the resources of ORAU and the Department of Energy. Matching funds from ORAU, the Department of Energy and other sources amount to 225% of the NSF grant.